Purchase of NMR Instrumentation

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of California at Los Angeles acquire a 360 MHz NMR spectrometer which will be used in research investigations in the following areas of chemistry: 1) Synthesis of Bioactive Natural Products, 2) Structural Recognition in the Complexation of Organic Compounds, 3) Exploratory Studies in Supramolecular Chemistry, 4) Unstable Reactive Intermediates from Singlet Oxygen, 5) Study of the Synthesis and Reactivity of Novel Boranes, Carboranes, and Metallacarboranes, and 6) Synthetic Organic Chemistry. Nuclear Magnetic Resonance (NMR) Spectrometry is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.